CAREER: Integrated Fault Tolerance and Real-Time Support for Middleware Applications

This project exploits the CORBA middleware standard as a vehicle for
exploring the composition of real-time and fault tolerance for
distributed middleware applications. Although the initial approach
will apply to CORBA, the results will be applicable to other
middleware, such as Java. The primary scientific contributions of
this project are the description of the precise trade-offs that occur
when both real-time and fault tolerance support are required for a
middleware application, along with an architecture and strategies that
can be used to resolve these trade-offs. The primary technical
contributions of the project are a new set of practices and algorithms
for building real-time fault-tolerant systems, and tools for
sanitizing non-determinism in middleware applications, with the aim of
meeting both real-time predictability and fault-tolerant consistency
requirements.

This project furthers our technical understanding of the precise
trade-offs and complex interactions between ``-ilities'' such as
real-time and fault tolerance, thereby helping to reduce the number of
proprietary brittle systems that continue to be built. The project
has the potential to influence the state of the art and the
state of the practice, enabling future COTS-based mission-critical
applications to be developed with simultaneous real-time and
fault-tolerant support. Recognizing that applications vary in their
dependability needs, this project is unique in that it provides
mechanisms to mix-and-match the different fault tolerance mechanisms
in a manner that allows for the customization of the system's
perceived dependability.

Through participation in organizations such as the Object Management
Group, the results of this project will be made available to harden
ongoing and future standards on fault tolerance and real-time for
middleware. Elements of this project will be incorporated into
curricula in order to expose students to the cross-cutting concerns of
both reliability and real-time. Students who are exposed to not just
one ``-ility'', but to the conflicts and trade-offs between multiple
``-ilities'', will make better and more discriminating software/system
architects who can be entrusted to build the mission-critical systems
of the future.